Seventh Meeting of the APS Division of Particles and Fields (DPF 92); Batavia, Illinois; November 10-14, l992

This grant is for partial support of the seventh meeting of the APS division of particles and fields. This conference is in a series of meetings, the last of which was in Vancouver, Canada in August 1991. It provides a forum for the presentation of the latest results in High Energy Physics, in both plenary and parallel sessions. It encourages the participation of young workers in the field, and as such provides some visibility for the work of graduate students and post docs.